WORKSHOP: Parallel CFD'99 International Conference

This award is for Parallel CFD '99, the eleventh in an international series of meetings featuring computational fluid dynamics research on parallel computers, will be held May 23-26, 1999 in Williamsburg, Virginia.

The technical program features invited speakers, three tracks of contributed presentations, a poster session, and will be preceded for the convenience of conferees by an optional half-day tutorial introducing the PETSc parallel software system, including case studies from fluid dynamics. Early experiences on teraflops-class ASCI computers and a report on the ASCI alliance program will also be featured at the meeting.